The Seventh ACM International Conference on Underwater Networks & Systems (WUWNet'12) - Student Travel Awards

This project supports 10 students to attend the seventh ACM International Workshops on Underwater Networks (WUWNet)to be held in Los Angeles, California, November 5 - 6, 2012. This will provide students exposure to the challenges and techniques for setting up underwater networks and using them for continuous monitoring of significant events.